Mathematical Sciences: Parallel Scientific Computing Research Environments for Mathematical Sciences

The Department of Applied Mathematics and Statistics of the University of Stony Brook will purchase a 56-node Intel Paragon parallel computer with 32 Mbyte memory per node to support the following research: 1. Hyperbolic Waves and Applications to Industrial Processes. 2. Bio-Mathematics and Statistics. 3. Robotic Motion for Efficient Manufacturing. This equipment will also provide advanced training to students learning efficient techniques for parallel computing.